U.S.-Japan Seminar: Membrane Fusion: Approaches to MolecularMechanisms in Biological and Model Membranes/November 1992/ Kyoto, Japan

This award supports the participation of 15 U.S. scientists in a U.S.-Japan Seminar on Membrane Fusion: Approaches to Molecular Mechanisms in Biological and Model Membranes. The co-organizers of the seminar are Dr. Demetrios Papahadjopoulos, Cancer Research Institute, University of California, San Francisco, and Dr. Shun-ichi Ohnishi, Department of Biophysics, Kyoto University. It will be held November 8-12, 1992 in the Kyoto International Conference Hall. The topics to be discussed include: fusion of model membranes, fusion induced by peptides and proteins, fusion of viruses with liposomes and erythrocyte ghosts, fusion of viruses with cell membranes, cell-cell fusion, fusion of myoblasts and sperm-egg fusion, molecular mechanisms, and intracellular transport and fusion. Membrane fusion is a ubiquitous phenomenon in biological systems, but the molecules that regulate it and its molecular mechanisms are largely unknown. Many groups around the world have taken a variety of approaches to the problem and are studying different biological and model membrane systems. Japanese investigators have been at the forefront of research on the mechanisms of virus-cell and virus-induced cell-cell fusion. Dr. Ohnishi's laboratory is a center for the development of innovative ideas in membrane fusion. The laboratory of Dr. Papahadjopoulos is a center for the development of new assays for membrane fusion and for investigations on the role of lipids and proteins in membrane fusion. This seminar will strengthen ties that already exist among the U.S. and Japanese investigators and provide a forum for the generation of new ideas and collaborations.